Identifying a Transferable Leadership and Organizational Learning Model from the Collective Experience of NSF Science and Technology Centers

The U.S. National Science Foundation's Science and Technology Centers (STC) Program has demonstrated the transformative potential of sustained investment in collaborative, team science grounded research. By bringing together investigators, institutions, industry, educators, and communities to address complex scientific challenges, STCs have advanced discovery, accelerated innovation, and developed the nation's STEM workforce. The STCs have fostered enduring partnerships that extend beyond the life of individual centers. While the scientific achievements of these centers are well documented, far less is known about the organizational, leadership, and governance practices that have enabled many of them to achieve sustained success and broad societal impact. Capturing and translating these lessons represents an opportunity to strengthen future collaborative research enterprises by building upon successful models for scientific innovation. This project will develop an evidence-based framework that identifies the organizational characteristics and leadership practices that have contributed to the long-term success of NSF Science and Technology Centers and that can inform future investments in collaborative research infrastructure.

This project will employ a convergent mixed-methods design to examine mature NSF Science and Technology Centers representing diverse scientific disciplines and organizational stages. Data collection will include semi-structured interviews with current and former center directors, administrators, education and workforce leaders, and external advisors. Researchers will conduct a national survey of past and present STC leadership and host interactive workshops to validate findings and identify priorities for future leadership development. Qualitative and quantitative findings will be integrated to develop a transferable organizational learning and leadership framework, a leadership onboarding toolkit, professional development curriculum, and a publicly available dataset. By systematically synthesizing the collective experiences of STCs, this project will provide federal agencies, research institutions, and future center leaders with evidence-based guidance to strengthen collaborative scientific enterprises and enhance the long-term scientific and societal impact of research infrastructure investments.